Similitude Modeling of Structural Damage by Fire

Similitude Modeling of Structural Damage by Fire
0301643

PI: James Quintiere, University of Maryland

Dimensionless modeling parameters are presented in order to develop physical scale models to
emulate and predict the behavior of full-scale structures in fire with respect to their fire
characteristics and the effect of fire on the structure. Experiments will be conducted at three scales to validate and assess the accuracy of the scaling. Fire and structural collapse will be studied for a frame steel construction of a compartment subject to a fully involved fire. The motivation of the study is the collapse of the World Trade Center towers due to fire and aircraft damage. Given appropriate accuracy of the scale model approach, the WTC collapse can be demonstrated to be a valid modeling strategy. The scaling approach has value in design and investigation as the WTC.

This is an interdisciplinary proposal between fire and structural engineering. These two
disciplines do not normally converse. Yet the fire resistance of buildings has been based on input
from both practices. Admittedly, the WTC buildings were constructed with no direct
consideration of the actual fire effect other than the requirement in the regulation. No design for
fire was explicit. How can this better be done? Scale modeling offers a viable, and perhaps a
more accurate approach than computer simulations. Scale modeling is a scientific approach, but
it should be validated. Even with no complete success, the results can aid in validating
computational modeling. The fire scaling can be an input to computational structural modeling,
and can serve to validate computational fire models. This proposal is the first time a complete
combination of the fire and structural failure scaled experiment is considered. If successful such
scaling will aid in the understanding of structural behavior in fire. Society will benefit from having safer and more reliable buildings.